SGER: Completion of Thomas Wolff's Recent Works

Proposal: DMS-0105158
Principal Investigator: Shubin, Carol A.
Institution: California State University at Northridge

ABSTRACT

This proposal concerns the completion of several works of Thomas H. Wolff.
Wolff's recent unfinished work concerns the restriction conjecture and
Kakeya problem, Anderson models, and spectral gap properties of measures.
In addition, he was in the process of writing an introductory book
for analysis students about the restriction conjecture and Kakeya problem.

Wolff was a recognized leader in the field of harmonic analysis.
He received the 1985 Salem prize and 1999 Bocher prize for his work, as
well as being invited to speak at the International Congress of
Mathematicians in 1986 and 1999. Many projects were in progress at the
time of his tragic death on July 31, 2000. The PI proposes to undertake
supervision of their completion.